Equipment Proposal for a Rapid Scanning, High Sensitivity FTIR Spectrometer

9412354 Scranton The Departments of Chemical Engineering and Chemistry at Michigan State University will purchase FTIR equipment that will be dedicated to research in engineering. The equipment will be used for several research projects, including in particular, high-speed FTIR studies of cationic photopolymerizations, controlling polymer structure and morphology for photonic switching applications and structural characterization of a high performance organic interfacial system. ***